A Liquid Sodium Simulation of the Alpha-Omega Dynamo Created During Galactic Black Hole Formation

A liquid sodium simulation of the alpha-omega dynamo created during galactic black hole formation

Stirling Colgate

The PI is conducting a laboratory experiment that reproduces an analog to some of the astrophysical phenomena seen in active galaxies. The experimental technique is based on the concept that the alpha effect of the alpha-omega dynamo is created by expanding plumes that untwist within a rotating frame. This type of dynamo forms from (1) differential rotation within a Keplerian disk - the omega deformation, and (2) the plumes ejected to large height from the disk by star-disk collisions - the alpha deformation. The analog of these astrophysical flows can be created in the laboratory in a conducting fluid - liquid sodium in this case. . The dynamo can be modeled in the laboratory because the flows are coherent, driven flows Dr. Colgate is testing this new concept with a liquid sodium experiment in order to apply the results to the origin of the magnetic fields of the Universe generated within the accretion disk close to the central black hole suspected to be at the center of many galaxies.